CAREER: Scalable algorithms for regularized and non-linear genetic models of gene expression

DNA mutations have a profound effect on how genes work, but it’s still not well understood which mutations affect which genes. Currently, our knowledge is limited due to challenges in analyzing genomics data, such as statistical errors arising from an overrepresentation of study participants from specific groups and simplistic statistical models that do not sufficiently capture the data. This project overcomes these challenges across three main scientific goals, in which innovative statistical models map DNA mutations to their target genes, and two educational goals, in which scientific training and interdisciplinarity are simultaneously cultivated. First, the investigators will improve the fidelity of mapping mutations to target genes for groups of individuals that are not well-studied. Second, the investigators will develop a new method to connect mutations to genes by considering how genes interact with each other in genome-wide networks, suggesting functional effects for many uncharacterized mutations. Third, the investigators will characterize the specific cells in which mutations exert their effects using scalable models that reflect the natural distribution of data from single cell genomic assays. This research advances the fields of bioinformatics and human genetics by introducing new, robust statistical models that link mutations to their target genes. This project also enhances biomedical discoveries, while simultaneously enhancing a heterogenous research environment. Toward the latter, the investigators initiate a multi-week on-campus research program for high school students from under-resourced communities, as well as genetics training courses for undergraduate and graduate students, supplying quantitative interdisciplinary skills coveted by industry and academia alike. This award will generate extensive datasets, open-source statistical models and genomics tools, high-impact publications, and course materials, thereby engaging and fueling the scientific community to partake and propel related research.

This project focuses on developing new genetic models to understand how specific genetic variations influence gene expression. These models overcome current limitations in characterizing the function of genetic variation, which often has the subsequent goal of implicating target genes in the regulation of human phenotypes such as height and cancer risk. Challenges of existing algorithms include statistical issues due to finite sample sizes (especially for understudied minority populations), multiple hypothesis burdens restricting the knowledge gained from genome-wide analysis, and model misspecification especially for new datatypes of growing popularity, such as single cell genomics. The investigators address these challenges across three main objectives. First, the investigators link genetic variation to changes in gene expression in understudied minority populations, by jointly modeling genetic associations across globally diverse datasets. Second, the investigators develop a comprehensive approach to map genome-wide genetic variants to changes in gene expression using a priori knowledge of gene regulatory networks and advanced machine learning algorithms to reduce the burden of multiple testing. Third, the investigators design a new statistical model to characterize the cell-type-specificity of gene expression regulation at high resolution; this model leverages the natural distribution of single cell data, resolving model misspecification of state-of-the-art methods and reduces measurement noise by modeling millions of single cell measurements across donors. This award supports the generation of open-source genomics software and data repositories characterizing the function of genetic variants, while also creating educational and training opportunities for under-resourced high school students and motivated undergraduate and graduate students. The symbiotic research and educational intertwine in a relationship that is expected to enhance both the research environment, as well as the research cohorts.